DDEP: Engineering Smart Biomaterials for Cartilage Tissue Engineering: A Drexel University and Shanghai Jiao Tong Training Partnership

Dr. Anthony Lowman of Drexel University submitted a DDEP for a Ph.D. candidate, Kara Spiller, on engineering smart biomaterials for cartilage tissue. This award enables this Ph.D. candidate to work at the Shanghai JiaoTong University for the Ph.D. dissertation research. This research is of great importance in the field of biomaterials and tissue engineering. The resources and expertise available from the Chinese labs at JiaoTong University and the medical facilities there are complementary to those at Drexel University. The results of the proposed experiment on the material properties of hydrogels and their subsequent release profiles are useful to understand the ability to enhance cartilage repairs.